Mathematical Sciences: Combinatorial Aspects of the Model Theory of Finite, Pseudofinite and Homogeneous Structures

There are a number of quite general related questions in model theory which are connected with concrete combinatorial problems. Cherlin will study several which represent fairly broad and poorly understood areas. In particular, the following questions will be considered. (1) Is the generic triangle-free graph pseudofinite. (2) Is there a zero-one law for large finite labelled directed graphs containing no transitive tournament of order 3. (3) What is the minimal complexity of a language, admitting quantifier elimination, for the structures given by the action of the wreath product Sym(n)*Sym(d) in its action on d-tuples of k-sets? (4) What is the classification of infinite primitive homogeneous structures for a language with three symmetric 2-types, under the hypothesis that a negative constraint is imposed on a substructure of order three. The co-investigator, Thomas, will continue related work on reducts and expansions of omega-categorical structures. He also plans to study omega-stable group actions and independence results on infinite symmetric groups. The subarea of model theory within mathematical logic concerns itself with axiomatic systems, particularly questions about theories founded on systems of axioms, which can be answered purely from considering the forms of the axioms without real regard for their content. It is surprising how much can sometimes be learned in this way, for it often seems to be getting something for nothing. Model theorists have developed a rich subject and have been able to shed light even on such well-studied topics in algebra as the theory of groups and the theory of fields.